Investigation of a Zeeman Split Neutral Xenon Laser for Infrared Monitoring of Atmospheric Carbon Monoxide

The PIs propose to design and construct an instrument to measure carbon monoxide at levels of a few tens of ppbv. Specifically, they plan to measure the absorption of the neutral xenon laser line at 220.99 cm-1, using the infrared R16 line of carbon monoxide and using the Zeeman effect to shift the laser frequency to achieve precise coincidence between the laser and absorption lines. They state that a simplified version of the instrument, not requiring Zeeman tuning, would have widespread use for safety and industrial-hygiene uses where carbon monoxide must be monitored.